Significance of Solar Ultraviolet Radiation in Arctic Waters: Effects on Phytoplankton and Ichthyoplankton

9321736 Holm-Hansen The effects of increased ultraviolet (UV) irradiance on planktonic ecosystems have been studied in some detail for Antarctic waters but comparable studies have not been carried out at high northern latitudes. Recent evidence has documented a thinning of ozone over Arctic seas, suggesting the potential for similar UV effects in northern waters. In this proposal we will determine the effects of present-day ultraviolet radiation, as well as the potential effects of increased UV irradiance, on phytoplankton and ichthyoplankton in high Arctic latitudes. Studies of Arctic phytoplankton, to be conducted in Norway, will focus on (i) the effects of UV radiation on photosynthetic rates and the effect on overall rates of primary production, (ii) the extent to which cells can decrease their sensitivity of UV radiation by synthesis of UV-absorbing compounds, (iii) species- specific differences in UV resistance, and (iv) DNA repair capacities which are unknown for northern plankton communites. Studies of UV damage to ichthyoplankton have not been conducted at either pole. Recently developed methods allow us to measure the amount of UV induced DNA damage in individual free-living eggs and larvae. The results of these studies, done at temperate latitudes, have shown that the diel cycle of damage and repair, the pre-exposure conditions, and interspecific differences greatly effect the susceptablility to UV damage. The present study will be the first attempt to measure the impact of UV on early life-stages of important polar fisheries species. The proposal brings together the investigators' skills in measuring UV damage together with the unique location, collaborators and technical capabilities of the laboratories in Tromso, Norway.